South Carolina Computer Science, Engineering and Mathematics Scholars Program

This project uses the educational and research infrastructures of eight partner institutions as support systems for financially disadvantaged underrepresented minorities in the areas of computer science, engineering and mathematics. The program provides a mentor support system through problem- solving workshops, Drop- in Centers, Computer/ learning Centers and peer mentoring programs. Industrial and government partners provide outstanding cutting- edge research opportunities throughout the nation. Directed research and internships permit students to take part in a variety of research projects, establish mentoring relations with research faculty, and professionals and extend their classes into real- world tests.